Small Scales in the Navier-Stokes Equations

0072662
Kukavica

This project will address definition, interplay, and rigorous estimates of
various natural small scales arising in a viscous incompressible flow. In
particular, we will consider those lengths that can be derived directly from
solutions of the Navier-Stokes equations, which is the main model for a
fluid flow. Examples of such scales are the those resulting from the
Fourier spectrum of solutions, such as the inverse of the wave number at
which the Fourier spectrum is cut off exponentially, and the length scales
measuring complexity of level sets of solutions. Related problems will be
addressed also for other dissipative partial differential equations arising in
fluid dynamics, such as the Ginzburg-Landau and the Kuramoto-
Sivashinsky equations.

Navier-Stokes equations are perhaps the most widely studied system of
nonlinear partial differential equations. They are generally believed to
contain necessary ingredients to explain much of turbulence phenomena.
This project will address properties of solutions which would have
implications in understanding creation and properties of fine structures in
a flow. Potential applications include quantifying complexity of a fluid
flow, establishment of spectral properties of solutions, estimation of the
size of the mesh needed to resolve a flow numerically, and information on
locating observables for the flow's monitoring